Improvements to the Florida Museum of Natural History Ichthyological Collection

Abstract. A grant has been awarded to Dr. James Albert and Mr. George
Burgess at Florida Museum of Natural History to improve the Ichthyological
Collection. Species are in decline around the world as we pass through a
wave of mass extinctions due to human activities. While the biodiversity
crisis accelerates efforts are being made to preserve our genetic heritage
for future generations. The Florida Museum of Natural History
ichthyological collection is a significant national resource, with
principal strengths in western and eastern Atlantic shelf and deepwater
marine fishes, western Atlantic reef fishes, and freshwater fishes from the
Southeastern United States, Central and northern South America, and the
West Indies. The UF collection continues to grow and is used by researchers
throughout the nation and the world. The Florida Museum ichthyological
collection presently contains about 216,000 identified lots (jars) bearing
close to 2.2 million specimens ascribed to approximately 6,600 species. Of
these about 150,000 lots are electronically catalogued. Among the
uncatalogued materials are an estimated 73,000 lots of specimens identified
to species acquired from orphaned collections. These uncatalogued lots
include some of the Florida Museum's most valuable materials. At present a
large number of these specimens are not electronically catalogued, greatly
restricting their use and access. The lack of availability to these
substantial resources on electronic databases dramatically reduces their
utility and represents a significant loss of research opportunities.

This project will electronically catalogue and physically integrate
orphaned lots into the existing Florida Museum collection in newly provided
facilities. The specific goals are to: 1: Install mobile, high density
shelving units in the newly allocated space. 2. Electronically catalog
46,500 identified lots. 3: Physically integrate these materials into the
existing catalogued collection on newly purchased and existing compactor
shelving units. All lots will receive new labels, be topped off or receive
new alcohol as needed, receive new closures or be rebottled if appropriate,
and be shelved with conspecifics on compacted shelving units. To facilitate
continued safety and access throughout the cataloguing process all
materials will be maintained in phylogenetic order by family in
air-conditioned facilities provided with access aisles. To expedite
incorporation of new collections we will minimize new taxonomic
identifications. Specimens representing highly redundant taxa or those
terminally damaged will be recorded and discarded.

Electronic cataloguing of the orphaned materials will substantially
increase the flow of information into and out of the Florida Museum
collection as a whole. Cataloguing and integrating orphaned ichthyological
collections will provide visiting scholars, students and users of the
Florida Museum and Internet databases access to these important data.
Achieving the project objectives will facilitate long-term growth of the
collection, promote research into the catalogued materials, and greatly
increase the long-term management and public outreach capabilities of the
Florida Museum and its information resources. These results will enhance
the role of the University of Florida as a center for the education and
training of a new generation of scientists in aquatic biodiversity.